REU: Research Experiences for Minority Women Undergraduates at the Marine Science Institute of the University of Texas at Austin

9322284 WHITLEDGE This project is to develop a REU program, specifically targeted towards the participation of minority and women undergraduate students. Special emphasis will be placed on recruiting students from the HMCU's from the South Texas region. There is a wide range of projects with research opportunities and there is a good plan to integrate students with the general student population at UTMSI by the assignment of a graduate student mentor.